Materials Research Science and Engineering Center: The Mesoscale Interface Mapping Project

9632556 Adams The Materials Research Science and Engineering Center (MRSEC) at Carnegie Mellon University supports research on the study of crystalline interfaces at a mesoscopic scale. The effort concentrates on grain and subgrain boundaries in two-component polycrystals and is complimentary to investigations at the atomic and continuum scales. The seminal concept of the project is that a bridge can be constructed between the character of grain boundaries and certain of their intrinsic properties. This bridge will encompass the very large space of all physically distinctive grain boundaries, known as fundamental zone. The mission is to construct mappings using automated microscopy which link the intrinsic materials properties of individual grain boundaries to their character and chemistry over the entire fundamental zone. The mesoscale of interest lies approximately between 100 microns and 100 nanometer. The anticipated progress is likely to accelerate the world-wide effort towards a unified structure-properties theory, linking structure-properties relations from the atomic scale upwards to the continuum scale. The MRSEC supports the development, operation and maintenance of shared experimental facilities for materials research. It fosters research participation by undergraduates and pre-college students, and is developing strong industrial relationships. The Center currently supports 8 senior investigators, 3 postdoctoral research associates, 8 graduate students, and 4 undergraduates. The MRSEC is directed by Professor Brent L. Adams. %%% The Materials Research Science and Engineering Center (MRSEC) at Carnegie Mellon University supports research on the study of crystalline interfaces at a microscopic scale, also known as mesoscale. The seminal concept of the project is that a bridge can be constructed between the character of grain boundaries and certain of their intrinsic properties. The anticipated progress is likely to accelerate the world-wide effort towards a unified structure-properties theory, linking structure-properties relations from the atomic scale upwards to the continuum scale. The MRSEC supports the development, operation and maintenance of shared experimental facilities for materials research. It fosters research participation by undergraduates and pre-college students, and is developing strong industrial relationships. The Center currently supports 8 senior investigators, 3 postdoctoral research associates, 8 graduate students, and 4 undergraduates. The MRSEC is directed by Professor Brent L. Adams. ***